Shortgrass Steppe Field Station

Colorado State University is awarded a grant to expand housing at the Shortgrass Steppe (SGS) Field Station with a 5 bedroom house that will increase housing capacity to 30 individuals, located in a small campus adjacent to a new classroom/meeting facility. The new housing, along with the recently constructed classroom building, will increase the number of students and underrepresented groups visiting the site as well as support a growing research program.

The Shortgrass Steppe Field Station is located on the Central Plains Experimental Range (CPER) in northeastern Colorado. Experiments have been conducted on the CPER since 1938, and the Field Station has been in existence since the 1960’s. The research conducted at the SGS Field Station is recognized worldwide as one of the most important sources of new ideas and important results in grassland ecology. Research at SGS has also had major implications for land management in the region. The enhancements through this award enable the Shortgrass Steppe Field Station to remain a multi-institutional center of excellence for research, education, and natural resource interpretation for shortgrass steppe ecosystems.